HEC: Active Data Systems

This project plans to address several issues related to broadening the practicality of active storage such as:
the impact of mixed workloads (both active and normal requests) at the active devices; the impact of multiple active applications at the active devices; the resource scheduling and QOS policies for a diverse set of workloads; and, the impact of intelligent allocation in active storage systems.
In order to address these issues, the project plans to develop an "active data" model to allow flexible processing of data, either at devices or at the requester, develop QOS algorithms and security mechanisms for mixed workloads, and algorithms and prototypes for exploiting the nature of data to develop content-based active storage.